Multiobjective Optimum Design of Semiconductor Power Converters

The goal of this research is to provide power supply designers with a more realistic and practical design methodology that will enable them to meet design specifications of the present and future applications in aerospace and industrial concerns. The design strategy results in converters with smaller weight and volume, reduced device stresses with the highest possible system efficiency. These goals are achieved by solving a multiobjective optimization formulation that provides the Pareto-optimum designs for the diverse and non-commensurable objectives of the designer.